Conference: The 11th SIAM Central States Section Annual Meeting at Jackson State University

The 11th Annual Meeting of the Society for Industrial and Applied Mathematics Central States Section (SIAM-CSS) at Jackson State University on October 10–11, 2026 is the principal annual meeting of the SIAM Central States Section. The conference brings together researchers, educators, postdoctoral scholars, graduate students, and industry professionals from Arkansas, Colorado, Iowa, Kansas, Mississippi, Missouri, Nebraska, Oklahoma, and neighboring regions. The meeting promotes the exchange of ideas, fosters interdisciplinary collaborations, and strengthens regional research networks in applied and computational mathematics. As the first SIAM Central States Section Annual Meeting hosted in Mississippi and the first at a historically Black university (HBCU), the conference broadens participation in the mathematical sciences by supporting students, postdoctoral researchers, and early career faculty from institutions with limited research resources. By advancing mathematical research, promoting workforce development, and expanding access to research and mentoring opportunities, the conference contributes to the nation's scientific innovation and economic competitiveness.

The conference features plenary lectures, mini-symposia, contributed talks, poster presentations, and professional networking activities covering scientific computing, numerical analysis, partial differential equations, optimization, machine learning, computational data science, artificial intelligence, and mathematical modeling. These activities facilitate the dissemination of innovative mathematical theories, computational methodologies, and data-driven approaches while promoting collaborations across mathematics, engineering, computer science, and related disciplines. NSF support provides travel assistance for students, postdoctoral researchers, and early career faculty, enabling broad participation and strengthening mentoring, professional development, and interdisciplinary collaborations. The conference advances research and education in applied and computational mathematics while supporting emerging areas, including artificial intelligence and scientific machine learning, that address important scientific and technological challenges. The website URL is: https://sites.google.com/view/siam-css-2026/home.